Development of an Experimental Method for Plastic Zone Observation

9412990 Rubinstein This is a Small Grant for Exploratory Research type project to evaluate the possibility of using the grain growth associated with recrystallization to locate the elastic-plastic interface in front of a crack. Such knowledge would be useful in evaluating theories of fracture mechanics. The main issue is the development of temperature-time pattern for the sample heat treatment to yield the most sensitivity at the elastic-plastic interface. ***